Studies of Neutrino Oscillations, Neutrino Astronomy, and Baryon Number Violation at the Super-Kamiokande Observatory

The physics topics the PI selected are supported by the Super Kamiokande collaboration and are those that he can successfully complete at his home institution. He is performing an excellent job in providing hand-on research experience to undergraduate students.